REU: Research Experience for Undergraduates in Biological Sciences at Carnegie Mellon University

This is a Research Experiences for Undergraduates project. It provides research experiences for ten students at Carnegie Mellon University. Students will participate in projects involving biochemistry, cell biology, genetics and molecular biology.